Upgrade of Rensselaer Polytechnic Institute Experimental Geochemistry Laboratory

This award provides 70% of the funds required to purchase equipment for the upgrade of the experimental petrology and geochemistry laboratory in the Department of Earth and Environmental Sciences at the Rensselaer Polytechnic Institute. The institution is committed to providing the remaining 30% of the funding required. The equipment consists of high-pressure vessels, high- temperature furnaces and a cathodoluminescence microscope system. The RPI laboratory is engaged in research projects investigating the rates of geologic processes such as diffusion in minerals, melting and the transport of melts in the Earth's lower crust, all of which require the equipment upgrade in this award.